Purchase of X-Ray Diffraction System

Single crystal X-ray crystallography is the most powerful analytical method for structure determination of solids. In synthetic inorganic, organic, bioinorganic and organometallic chemistry, single crystal X-ray diffraction is an invaluable tool to characterize molecular structure. The information gained from the knowledge of the molecular composition and structure helps to develop new reactions of potentially general interest in catalysis or synthesis. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry at University of Missouri Columbia acquire a new X-ray diffractometer system and purchase an upgrade of the existing diffractometer. Among the areas of chemical research that will be enhanced by the acquisition are the following: l. Bifunctional Chelates of 105 Rh and 199 Au as Potential Radiopharmaceuticals 2. Late Transition Metal u-Oxo and u-Imido Complexes 3. Nitrosamine Chemistry and Carcinogenesis 4. New Ozonide Chemistry 5. Intramolecular 4+3 Cycloadditions and Molecular Clefts 6. Use of Functionalized Surfactants and Cyclodextrin in Chemical Analysis 7. Structural Studies of Peptide Mycotoxins and Siderophores 8. Reactivity of Quasi-Aromatic Metal Rings 9. Direct Measurement of Electron Density Distributions in Crystals